U.S.-Korea Cooperative Research: Magnetic Pressure Confine- ment of the Optical Jets in Young Stellar Objects

This proposal requests funds to permit Dr. Thomas W. Jones, Department of Astronomy, University of Minnesota, to pursue with Dr. Seung-Urn Choe, Department of Earth Science, Seoul National University, for a period of 12 months, a program of cooperative research on magnetic pressure confinement of the optical jets of young stellar objects. The collaborators will investigate the nature of ionized gas outflows from certain young stars. Theoretical calculations then will be made in order to understand the mechanisms which collimate these flows into narrow, jet-like structures. Various models will be developed, used, and evaluated. The general area of the proposed research is one that is currently very active in the United States. Gaseous jets have been observed to emanate from young stellar objects. A somewhat novel process of confining such jets will be explored in the present project. The collaborators are highly respected scientists who have successfully cooperated in this field for some seven years. The present project will allow these scientists to combine their talents in the study of the research problem. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit. Korean participation in the project is supported by the Korea Science and Engineering Foundation (KOSEF).